International Collaborative Project on Informatics Platform for Prognostics and Maintenance Optimization

The NSF Industry/University Cooperative Research Center on Intelligent Maintenance Systems (IMS) has developed a joint collaborative project with the Condition Based maintenance Labs of University of Toronto in Canada to advance the prognostics tools to augment the research capabilities at the Intelligent Maintenance Systems Center. This international project will develop a Collaborative Informatics Platform for Prognostics and maintenance Optimization by integrating smart prognostics agent and hybrid Proportional Hazard Model and Time Depended Markov Chain to enhance the effectiveness of the predictive maintenance system. This integration will further enhance the prognostics capabilities to achieve the vision of near-zero-downtime performance of the IMS Center.

The results of this joint project will be shared among the company members of both the Center on Intelligent Maintenance Systems and the Condition Based Maintenance Labs of the University of Toronto.